Chemical Anaylsis, Morphology and Grain Size of Insoluble Particles in the Greenland Ice Sheet

This award support one element of the second Greenland Ice Sheet Project (GISP2). The objective of GISP2 is the retrieval and analysis of a deep ice core from central Greenland. Insoluble particulates in selected samples will be analyzed for mass concentration, size distribution, chemical composition and morphology. Sampling will be coordinated with investigators working on other analytical techniques (specifically ECM/Laser Particles and Ice Chemistry) in order to identify the most important sections of the core for detailed study. The insoluble particulate concentration of ice samples from the GISP2 core will provide important information about not only the particulate loading of the atmosphere in the past but also temperature, radiation balance, global aridity, wind strength and circulation patterns. Superimposed upon the "background" concentrations of continental dust associated with changes in climate will be elevated particle concentrations from sporadic events such as volcanic eruptions. In addition to providing information about the temporal variations in the concentration and type of particulates deposited on the Greenland ice sheet, in conjunction with others, should also provide insight to the relationship between volcanism and climate.